Costs and benefits of multisensory category learning

Category learning is a fundamental building block of human intelligence. It allows the brain to simplify a chaotic world by grouping distinct objects, concepts, or experiences based on shared features or functions. Experiments aimed at understanding how the brain makes sense of the world and organizes it into conceptual categories have usually relied on data from a single sense- typically vision. But the real world is multisensory. The proposed work explores how coherent structured categories can be learned from complex auditory, visual, and combined stimuli that are redundant, conflicting, or ambiguous, to identify when multisensory experience strengthens learning and when it distracts or interferes with learning. The results can inform more effective learning and training practices in classrooms and workplaces, while also guiding the development of AI systems that learn more efficiently from the kinds of information people naturally use.

Despite category learning being so fundamental to human intelligence, our understanding of this cognitive process is restricted by the prevalent study of only visual information or only auditory information for categorization. As a result, it is unclear whether current theories of category learning can account for learning in more complex and naturalistic multisensory environments. Using controlled human experiments, this research will directly compare the processes and outcomes of multisensory and unisensory category learning and will evaluate two competing theoretical accounts of the potential benefits of multisensory information on learning: 1) multisensory integration in which information from different senses is combined to form a stronger representation and 2) encoding variability in which multiple forms of information support more flexible memory. Behavioral data will be analyzed using Bayesian approaches to determine how learning accuracy and generalization change across sensory conditions. By connecting theories of category learning with those of multisensory perception and memory, this project will clarify how people organize complex multisensory information in everyday environments and provide critical insights into teaching and learning strategies that may benefit learners in both formal and informal learning environments.